West Virginia University Request for High Performance Connection to vBNS

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in computational science, health sciences, computing systems research, computer supported cooperative work, distance education research and operating system and network protocol research. Collaborating institutions include University of Alabama at Tuscaloosa, Auburn, Kentucky, South Carolina, Tulane, National Center for Supercomputing Applications, University of California at Davis, Harvard, Utah State, Georgia State, Iowa, and the Pacific Northwest National Laboratory.